Group Travel for U.S. Participants in VIII International Congress of Protozoology, to be held in Tsukuba, Japan, July 10-17, 1989

This award is for partial travel support for American participants to participate in an International Congress of Protozoology, to be held in Japan in July of 1989.